Northeast Regional Conference on Developmental Biology to beheld at the Marine Biological Laboratory, Woods Hole, MA May 1-3, 1992

The 1992 Northeast Regional Conference on Developmental Biology will be held at the Marine Biological Laboratory, Woods Hole, MA on the weekend of May 1-3. This proposal is for funds to support graduate student attendance and participation at the meeting. The Conference is organized with the intent of bringing together a broad range of developmental biologists, at various stages of their careers, to present and discuss their research in formal and informal settings. Further, the organizers continue to integrate research in both plant and animal developmental biology in an effort to enhance the communication between groups that have traditionally been separated. The Conference will include four formal platform sessions and two poster presentation sessions, as well as a keynote address and a second featured presentation by prominent developmental biologists. The established investigators chairing the platform sessions are encouraged to solicit presentation from graduate students, postdoctorals, and junior faculty, and all graduate students attending the meeting are encouraged to present their work in the poster sessions.